Oceanographic Instrumentation

0140469
Morin
This award to Texas A&M University provides instrumentation to update, improve and expand the capabilities of the TAMU Technical Support Group in conducting analysis of nutrients in seawater. Specifically, it provides colorimeters, peristaltic pumps, a chart recorder, a computer, and components for data acquisition. These shared-use systems will be of substantial advantage to marine scientists using this group to support their programs in ocean nutrient research during 2002 and future years.
***